Regulation of Muscle Glycogenolytic Complex

This project aims to develop quantitative understanding of the basis for regulation of glycogenolysis, a process most certainly carried out by multi-enzyme complexes in muscle. Specific aims will be to develop useful models of complexes with increasing degrees of organization, along with mathematical expressions of their activities, so that predictions can be tested experimentally. Models will be evaluated in terms of actual enzyme sensitivity to effectors, response times with changes in effector levels, energy consumption, and relationship to native glycogen particles. Microscopy of the scanning tunneling and atomic force type(s) will be employed to visualize system components and the complexes likely to occur with them.//